Dredge Cutterhead and Drill Bit Flow Processes

Computer simulations will be extended to learn more about the processes of soil movement and transport by a confused 3-D flow field affected by complex boundaries, rotating cutterblades, variable flow rates and positioning of the intake to the dredge pump. New dredge intake and cutterhead shielding techniques will be tested and more extensive efforts made to evaluate cutterhead flow processes, as well as to examine interphase mass transfer as affected by linear and non-linear friction relationships. These studies will refine dredge cutters, pipeline trenchers, and offshore mining techniques and later advance to analyses of oil well drilling bits and tunneling machines. Additional hydraulic studies using a 1:6 scale model will establish scaling relationships for subsequent prototype tests.